Special Sets of Real Numbers

9971282
Bartoszynski
In this project the investigators continue their research on various
set theoretic notions of smallness in low levels of the cumulative hierarchy,
particularly those that involve measure-theoretic, topological, Ramsey-
theoretic, game-theoretic, or other combinatorial notions.
Once ``infinite'' vs. ``finite'' was the mathematical dividing line
between ``large'' and ``small.'' In 1878 Cantor showed that the situation
is far more complex, and the development of topology or analysis complicated
it even further. Today there are many different ways to express that a set
of real numbers is small. Using the technique first developed by P.J. Cohen,
one sees that many questions involving these smallness properties cannot be
resolved in the framework of elementary mathematics. At the same time the
study of these properties illuminated several problems from other areas of
mathematics, which gave this subject a life of its own.
***